Solar Eclipse F Corona Velocity Measurements

The rare brief periods of total solar eclipse provide valuable opportunities for ground-based observers to study the inner regions of the solar corona. Dust particles in the outer regions of the corona (F corona) are believed to be orbiting under the combined influence of solar gravitational and radiative forces which dominate the region. Observational confirmation of the expected dust velocities within a few solar radii of the Sun are difficult to obtain. Total solar eclipses offer opportunities of a few minutes for observation and experimentation with suitable instrumentation. In 1978 a team at Iowa State University began development of a special electro-optical system to detect and measure the motion of the dust. The instrument was used in 1979 to record the first detections of the dust velocity profiles at two points in the corona. Two attemps to employ improved versions of the instrument system at subsequent eclipses were not successful. If the sky conditions are optimum for the 1991 eclipse, it is hoped that about 10 times the data that has been previously collected will be obtained. These measurements would provide information on the motions of the dust in the F corona.